Rural Systemic Initiatives in Science, Mathematics, and Technology Education-Ozark RSI

This project conducted by the Southwest Center for Educational Excellence will work with ten districts to implement systemic reform strategies through content-based professional development, action research, standards-based curricula, reallocation of resources, formulation of supportive policies, and development of local partnerships. Four catalyst schools will partner with smaller districts, and key staff work will be organized by the schools' five-year improvement plans.